Low Frequency Electrodynamics of Correlated Metals

9801816
Gruner
In this research Professor G. Gruner of the Department of Physics of the University of California at Los Angeles will investigate the behavior of some heavy fermion compounds and organic conductors in the millimeter and microwave regions of the spectrum under varying conditions of frequency, temperature and magnetic field. The purpose of these studies is to investigate the possible breakdown of the Landau theory of fermi liquids. Previous experiments on uranium platinate gave results that suggest that a systematic search for such breakdown would be appropriate. This topic is of high current interest and stands at the forefront of contemporary research in solid state physics. The Landau theory has been very successful in describing the behavior of metals but it may not apply to systems characterized by strongly correlated electron-electron interactions. These are believed to active in systems that exhibit high-temperature superconductivity, colossal magnetoresistance, and others. The objectives of the
research are therefore: to test the validity of the Fermi liquid theory of the metallic state with heavy fermion metals; to determine the nature of the correlation gap in heavy fermion insulators; to explore the various quantum states in quasi one-dimensional metals; and to examine the Mott-Luttinger gap in these insulators. The experiments will be done on the heavy fermion compounds CeAl3 and CeRu2Si2, and others. Also, experiments will be performed on linear chain metal compounds, the so-called Bechgaard salts, to explore the anisotropic electrodynamics. Here the reason for these experiments is the recognition that for strictly one-dimensional metals with electron-electron interactions, the ground state is not that of a Fermi liquid and that a magnetic field can change the dimensionality of the system. The experiments will be performed with high Q resonant structures in which the samples form part of the structure.
%%%
This research will investigate the behavior of some heavy fermion compounds and organic conductors. The purpose of thses studies is to investigate the possible breakdown of the Landau theory of fermi liquids. This topic is of high current interest and stands at the forefront of contemporary research in solid state physics. An important feature of the program is the integration of research and education through training of graduate students in a fundamentally and technologically important area.
***